Laboratory Measurements of CO Reacting with H3+ Isotopologues for Improved Astrochemical Models

Understanding how visible matter in the interstellar medium (ISM) undergoes the transition from molecular clouds to planetary systems is central to modern astrophysics. This research project will investigate the formation of the molecular ions HCO+ and DCO+ and their isomers, which are important probes of cold dense molecular clouds. The research team will accurately determine the production rates of these ions at very low temperatures relevant to the ISM using an advanced laboratory experiment that they have built. Results from the study will allow astronomers to accurately determine the abundance of these ions in space and interpret observations of the objects that represent the various stages of this transition, including dense molecular clouds, starless cores, prestellar cores, protostars, and protoplanetary disks. This project will also provide research opportunities for undergraduates, immersive science modules for English as a Second Language students at a local community college, and public lectures on astrochemistry.

Gas-phase chemistry in cold dense interstellar clouds is initiated by cosmic-ray ionization of H2. The resulting H2+ reacts with H2 to form H3+. Given the large H2 and CO abundances, essentially every such ionization leads to CO + H3+ forming HCO+, making the latter one of the most abundant molecular ions in the cloud and a key bottleneck in the ion-neutral chemical evolution of the cloud. Using a dual-source, ion-neutral, merged-fast-beams apparatus, the team will measure accurate outgoing-channel-specific integral cross sections (ICS) for CO reacting with H3+ and its deuterated isotopologues. Sensitivity studies find that the uncertainties in the kinetics data for reactions of CO with H3+ and its isotopologues limit astronomers’ ability to reliably predict the abundances of the resulting ions and trace the evolution of the cold dense ISM. The ICSs, which are expected to be accurate to about 20%, will allow the team to generate reliable thermal rate coefficients for the formation of HCO+, HOC+, DCO+, and DOC+. The team will make these rate coefficients available to the astronomical community in a form readily implementable in astrochemical models.